Presidential Young Investigator Award: Synthesis, Analysis and Simulation of Joint Analog-Digital Systems (REU)

This research is directed to exploring new methods for the design, analysis, and simulation of joint analog-digital systems from a general viewpoint. The general class of tracking analog-to-digital converters will be used as prototypical joint analog-digital systems using feedback.